Conference and Workshop on Biholomorphic Mappings

DMS-0075144
ABSTRACT

This award is for the partial support of a conference in the field of Several Complex Variables. The conference will address problems in the theory of biholomorphic mappings and its connections with PDE, geometry and function theory. The list of participants includes all the major contributors in the field and the conference will definitely attract many young investigators. Having conference to be held in Palo Alto, California also provides an opportunity for the participants to interact with researchers from UC Berkeley, Stanford and MSRI. I strongly recommend the award.